CAREER: Haptic Models of Large Structures

CAREER: Haptic Models of Large Structures

Bozidar Stojadinovic

``I hear and I forget.
I see and I remember.
I do and I understand.''

Lao Tsu, 604-531 BC

The goal of this CAREER project is to make a tool for haptic
structural modeling. This tool will be a virtual environment. A user
will be able to see and fly through a large structure. The user will,
also, be able to touch the structure, to feel its resistance, and to
push on it. To do this, I intend to merge a haptic interface tool into
an augmented reality setting.

My objectives for the next four years are:

1. To make a virtual environment for modeling three-dimensional
frame structures using VRML and interface it to DRAIN-3DX, a
program for structural analysis of civil structures.

2. To incorporate a haptic interface in this virtual environment
and develop a haptic rendering methodology for large structure,
enabling the user to push the structure and feel its deformation.

3. To interface the virtual modeling environment and the
real laboratory environment by making it possible to address
virtual and real sub-structures through the same interface.

Development of a haptic structural modeling tool is a challenge.
Haptic rendering of large objects is an open problem. Design of a
haptic interface to virtual and real substructures has not been done
before, but may have a broader significance for a Network for
Earthquake Engineering Simulation (NEES), a five-year NSF initiative
taking off in 1999.

The challenges are here, but the benefits of having a haptic learning
tool are huge! Students will be able to touch structures, resist land
slides, feel earthquake vibrations and immerse in fluid flow. This
haptic tool will take learning from hearing and seeing to touching and
doing... and understanding, as Lao Tsu meant two-and-a-half millenia
ago.

--